3-D Slabs in the Earth's mantle: Code Development, Dynamics and Synthesis

Gurnis 9417645 The time has come to more fully understand the flow and rheology of slabs from initial descent of the oceanic lithosphere as it slides by the over-riding plate down through its complex passage into the mantle transition zone. This will require that a new generation of dynamic models be simultaneously tested against both observations at intermediate scales (10-100 km) and at larger scales (100-100000km). This lime of research has been made possible by recent incorporation of faults between subducted and over-riding plates in dynamic slab models. When faults are incorporated between plates, oceanic trenches naturally arise and the essential trends of all relevant observations are reproducible. ****